Collaborative Research: A Virtual Laboratory for Information Assurance Education and Research

This project creates a virtual laboratory in information assurance that is shared by a consortium of institutions. This laboratory can be configured remotely, allowing the consortium partners to set up the laboratory for their projects, and used remotely so that students from the consortium partners can use the lab without physical travel. The project also includes work that strengthens or adds to the information assurance work at each of the consortium partners, which include several minority-serving institutions.